Research Experiences for Undergraduates in Chemistry at Colgate University

This Research Experiences for Undergraduates (REU) Site project is in the field of chemistry. For a one-year period beginning April 1992, ten (10) undergraduate students will spend ten (10) weeks engaged in basic research under the direction of the faculty members in the Chemistry Department. Chemical kinetics has been chosen as a theme to provide a common thread for communication and discussion among students initially, and a common base of knowledge for future discourse among students and faculty. We expect student participants to work side by side with their mentors, to meet weekly as a group, to present final written and oral reports to the Department and to participate at a national undergraduate research conference.